Cooperation on Research and Development of Reusable Multi- Lingual Lexicons for Natural Language Processing

This is an ESPRIT/NSF Cooperative Activity proposal, submitted jointly to NSF by Yorick Wilks of NMSU and to CEC/DGXIII/ESPRIT by Antonio Zampolli of University of Pisa, Italy. The building of reusable, multilingual lexicons for natural language processing is essential for the Grand Challenge Problem - Speech/Language Understanding. There are extensive machine translation and other linguistic research efforts in EC, especially those under the auspices of Esprit. This joint project is expected to provide a start and a means for U.S. researchers to form a collaborative relationship with their European counterparts. The results of this joint work will be shared with the general research community on both sides of the Atlantic. Funding of the European colleagues is provided by the EC/Esprit.